Sexual Selection VS Natural Selection in the Spider, Agelenopsis aperta

This research project is concerned with the degree to which selection of males for mating by females may limit members of a population from achieving those traits that might best adapt them to the rigorous physical and competitive environment in which they exist. The work is based on the premise that whereas a female's success is related to her ability to compete for food, a male's success is determined by his ability to compete for females. These asymmetries may lead to selection of different characteristics in males versus females which ultimately will increase the variability of traits exhibited in the population, moving the mean away from behavioral and morphological characteristics that might be best suited for the environment. The investigators will test this premise in a population of spiders occupying an extremely harsh physical environment where there is strong selection for individuals that: 1) "recognize" the value of particular habitat feature: and 2) successfully obtain and dependthese superior foraging sites against intrusion by other members of their own species population. Spiders, by their nature, have proven to be excellent tools for study of this and other ecological and evolutionary problems. They are readily and adequately sampled because they are present in large numbers and are not disturbed by the human observer. They also can be easily manipulated without disruption of their "natural" behavior. This is a major problem when utilizing vertebrate subjects. Finally, as a group, spiders perform many of the behaviors and exhibit adaptations characteristic of the vertebrates, but in a less complex and, thus, more analyzable and quantifiable form.